RET Site: Research Experiences for Greater Houston High School Science and Math Teachers

This award provides funding for a three year standard award to support a Research Experiences for Teachers (RET) Site at the University of Houston, entitled, "Research Experiences for Greater Houston High School Science and Math Teachers." The program will provide, for each of the three years of this program, an eight-week summer research experience for twelve high school math and science teachers from the Houston, Texas school district.